RUI: Study of Heavy Ion Reactions (Physics)

This grant will support a program of heavy-ion nuclear physics experiments by faculty and students from Western Kentucky University. The research will be carried out using accelerators and instrumentation at Oak Ridge National Laboratory, and will involve collaborations with Oak Ridge scientists. Inelastic scattering of a variety of heavy ion beams from targets of Pb-208 will be measured and analyzed. The grant is made under the auspices of the Research at Undergraduate Institutions (RUI) program.